Airborne Remote Sensing Atmospheric Profiler for Mesoscale Studies

Much of the weather that is life threatening or disrupts economic activity (e.g. tornadoes, heavy rains, hail heavy fog, severe snowfalls) occurs on what meteorologist term the mesoscale. Recently, the atmospheric sciences community has placed an increased emphasis on improving our understanding of mesoscale phenomena. In a Phase I SBIR research award, the Principal Investigator showed through theoretical and numerical analyses the viability of an airborne remote sensing device for retrieving vertical profiles of temperature and moisture in the clear air both above and below the aircraft flight level. Due to the great mobility of aircraft, such measurements would be of substantial benefit in mesoscale research. In Phase II, the Principal Investigator will fabricate and field test this remote sensing device.